Aquisition of a Confocal Laser Scanning Microscope System

This proposal to the Major Research Instrumentation Program requests funds for the purchase of an Olympus Fluoview laser- scanning confocal microscope system to be shared by researchers in several departments at the Charles River Campus of Boston University. This confocal microscope will extend the research of several Users who are experienced with confocal microscopy, and it will allow the initiation of many new research efforts using confocal microscopy by 12 principal investigators and over 70 postdoctoral fellows, graduate students and undergraduates. The research projects of the Users cover a wide range of microscopic applications including the following: visualization of basic cellular events, the analysis of neuronal and synaptic anatomy and function, the subcellular localization of cellular components, the study of development, and cell-specific gene expression. In addition to research, this microscope will be used in a wide variety of research training at all educational levels, especially the training of graduate students and postdoctoral fellows in the laboratories of the Users. At the undergraduate level, this microscope will facilitate the research of many students doing honors research in the Users laboratories, the students doing projects funded by the NSF Research Experience for Undergraduates (NSF-REU) program and the students doing Howard Hughes Medical Institute-sponsored summer research. As part of the Howard Hughes Medical Institute-sponsored Frontiers in Biology for High School Teacher Summer Research, a number of local high school teachers will also use the microscope. The use of a confocal microscope is critical for studies which require high resolution light microscopic images of fluorescent markers, particularly in thick or living specimens. The use of photomultiplier detection in this confocal scope greatly enhances the detection of faint images and allows the accurate quantitative measurement of colocalization of fluorescent labe ls at the limits of resolution of the light microscope. The requested equipment includes an Olympus Fluoview Confocal Imaging System integrated with an Olympus BX50 light microscope. The Fluoview confocal microscope can achieve excellent performance at a relatively low cost, because the Fluoview confocal system has been optically integrated directly to the Olympus BX50 using optimized hard optics. It will allow single- and double-label imaging, along with both transmitted (Nomarski) and reflected imaging modes. The two lasers we are requesting (an argon ion and a dual-line krypton ion laser) provide three widely-spaced excitation wavelengths to allow the use of the broad range of fluorochromes needed for optimal multiple-labeling. The emission filters can be easily changed by the users to accommodate any future developments in fluorescent probes. The Fluoview software is intuitively organized and well suited for a multi-user facility, as all of the microscope settings are graphically illustrated for specific labeling techniques. This software provides strong support for the optical sectioning, 3-D reconstruction and rotation, and kinetic analysis requirements of the users. The BX50 Olympus microscope provides excellent optical performance at a reasonable price. It incorporates the latest infinity corrected optics using universal high numerical aperture objective lenses that can be used for all techniques including fluorescence and Nomarski optics. The ergonometrics of this microscope are excellent and it allows the use of three fluorescent wavelengths plus transmitted light. The mechanical stability of this microscope provides an excellent base for the attachment of the Fluoview confocal scanning unit. In summary, this request for a high performance confocal microscope will broadly benefit both research and research training at the Charles River Campus of Boston University.